Frontiers in Complex Dynamics

This award provides funding to help defray the expenses of US participants, especially women, graduate students, postdocs, and junior faculty, in the international conference "Frontiers in Complex Dynamics" that will be held from February 21-25, 2011, in Banff, Alberta, Canada.

This conference will focus primarily on topics in the theory of holomorphic dynamics in one and several variables (e.g., dynamics and parameter spaces for higher dimensional holomorphic dynamics; renormalization, local connectivity, and area of Julia sets; iterated monodromy groups and laminations) but will also include talks on related areas. The unifying theme of the conference is the impressive body of work that John Milnor has contributed to the field, helping to make it one of the richest, most beautiful, and most active research areas in analysis. The format of the meeting is such that young people will have ample opportunities to speak and be otherwise engaged in the various conference activities.